Inferring Causal Structure from Statistical Data

Recent work on representation of both casual relations and statistical relations by directed independence graphs, and even more recent discoveries concerning search algorithms, offer the prospect of automated systems that will reliably extract causal information from large data bases, even when the number of variables is a hundred or more, and even when there is very little prior knowledge about the causal relations underlying the data. This work will systematically test the reliability of new search algorithms on simulated data to study the extension of graph representation to feedback processes using cyclic graphs, and to investigate the possibility of reliable automated dependencies in a data base. Reliable algorithms for inferring causal structure from statistical data will have widespread applications in engineering, epidemiology, the social sciences, and any other discipline where experimental controls are often limited or absent.//